Collaborative Research: FET: Towards protein folding dynamics - pioneering computational directions for predicting 3D structures of intermediates along a protein folding pathway

A protein's amino acid sequence folds into a 3-dimensional (3D) structure, which affects the protein's function(s). Protein folding is a dynamic process – a protein's sequence gradually folds into a series of 3D structural conformations (intermediates) until arriving at a final, native structure; this time series is a protein folding pathway. Analyzing folding intermediates is crucial for understanding folding dynamics and thus normal cellular functioning as well as misfolding-related phenotypes. Biophysical experimental technologies as well as computational prediction have yielded a wealth of 3D structural data, but almost exclusively for native states of proteins. This project introduces a paradigm shift towards predicting 3D structures of non-native intermediates along a folding pathway. Via its computational developments, this project will promote scientific progress in the fields of algorithms for systems and structural biology and machine learning and artificial intelligence (AI) prediction of protein structure. In parallel, the project will have implications to fundamental biological research – protein synthesis, protein design, and protein function analysis. The project's computational developments will be shared as open-source, user-friendly software to allow for their wide adoption. Through the project, research supervision and career mentoring will be offered to graduate and undergraduate students. Project results will be incorporated into bioinformatics/AI graduate courses.

The project will encompass the following research activities. The available experimentally determined 3D structural data on non-native folding intermediates will be identified and organized. Initial work reveals limited availability of such data. So, their computational prediction is critically needed. Hence, existing methods for predicting native 3D structures will be evaluated in this project’s task of predicting 3D structures of non-native folding intermediates, to deeply understand the existing methods' (dis)advantages in the considered task. This knowledge will then be combined with underlying biochemical/physical factors driving folding dynamics to develop next-generation generative AI methods for predicting 3D structures of non-native folding intermediates. A framework to evaluate the new methods will be developed, as such a framework does not exist, given the novelty of the task being considered. After a thorough evaluation, the new methods will be applied to predicting and analyzing pathways of misfolded vs. correctly folded proteins, to detect when, where, and how misfolding happens. Ultimately, this could allow for intervening to prevent or reverse protein misfolding, and guide (mis)folding-related hypothesis generation for future wet lab experimental validation.